Collaboration on Inverse Problems Using Holographic Image Data; Using RAM Theory

The principal investigator and her colleague Yulia Karpeshina will
collaborate to solve inverse problems for holographic image data using
Kolmogorov-Arnold-Moser (KAM) theory. The goal is to use selected
level sets of mode shapes of vibrating systems as data for the inverse
problem. With these level sets as data, formulas will be established. The
formulas will then be used to determine physical properties of the system,
such as density or stiffness. The results will be based on perturbation
results for the natural frequencies and the mode shapes. The difficulty in
establishing these results arises from the fact that a small divisor problem
and a sequence of Eikonal equations must be solved simultaneously. A
consequence of the resultant mathematical structure will be that the
perturbed quantities can be strongly different from the unperturbed
quantities. McLaughlin's graduate student will concentrate on developing
formulas to use the data and on numerical implementation of those
formulas.

The goal with this work is to consider membrane like materials, such as a
thin slice of biological tissue. Excite this membrane with an oscillating
force and suppose the frequency of oscillation is a natural frequency, that
is, a frequency where the membrane gives a large response. Illuminating
the vibrating surface with two lasers we see a dark and light line pattern.
Each line is a level set of the vibrating surface. Now assume that the
membrane is nonhomogeneous; it could be more stiff or less stiff in some
places. [In the biological example, increased stiffness can indicate the
presence of rapidly dividing cells. In a mechanical example, decreased
stiffness can indicate deterioration of the material.] The goal is to
determine the stiffness variations without altering the membrane, that is, to
find a nondestructive test for the stiffness variations. Our data is the dark
and light line pattern. The problem is difficult because the stiffness
variations can have (but not always) a very large perturbative effect on the
pattern. The mathematics will establish when the perturbation is large,
when it is not, and what formulas will yield the stiffness variations from
this particular data set.